In-situ Electrodynamics over Sprite Producing Storms in Southern Brazil

Four campaigns launching stratospheric balloon flights above large thunderstorm systems with sprite production potential are executed in Brazil to measure associated electromagnetic fields and X-ray fluxes. The first data pertaining to the electric field, electrodynamics, optical emissions, and X-ray production within 100 km of a sprite are assembled, and used to improve our understanding of underlying sprite physics and sprite energetics. The data are broadly disseminated and cast as input to existing sprite models.